Internet Connection: Georgetown University and Four Teaching Hospitals

9318076 Broering The Georgetown University Medical Center Library will extend multicampus network access to four teaching hospitals, Arlington Hospital, DC General Hospital, DC Veterans Affairs Medical Center and the Georgetown University Hospital. The network will provide faculty, staff, students and researchers with access to the Library's Knowledge Network of databases, to the Internet system, and to E-Mail services on the campus high speed network. The project will promote collaboration, sharing and information exchange to support education and related patient care and research. It will facilitate Georgetown's goals to enhance education at clinical rotation sites and to provide outreach services in the community. This proposed Internet link is a logical step in sharing resources generated through the Integrated Advanced Information Management System (IAIMS) project at Georgetown. The four project objectives are to 1. Establish a network link to the affiliated teaching hospitals. 2. Share resources, by providing access to the Library's Knowledge Network of bibliographic informational, document delivery and full- text databases. 3. Provide access to the Internet to promote collaboration and information exchange. 4. Provide E-Mail services to students, residents and faculty to improve communication in the learning process. The network architecture will include routers, cables and modems needed to install the link to each hospital. The project will include (1) a connection via leased telephone lines for Arlington Hospital (2) a security controlled Internet connection for the Georgetown University Hospital (3) dial-up access for initial experimentation at DC General Hospital and the Veterans Affairs Medical Center. Georgetown will extend dial-up Internet access to local practitioners. Library access is a major emphasis of the project as the Knowledge Network's bibliographic, informational, document delivery and full-text databases are a vital element of the clinical teaching programs. The security control system to be developed by the Georgetown University Hospital will be shared with the participating hospitals as their network needs evolve. Collaboration between the hospitals will emerge through the teaching programs. The project will benefit nearly 5,000 health professionals at the four hospitals and over 1,000 Georgetown students and residents. Increased use of the network is envisioned as the potential benefits are realized.